Research into Database System Theory

9223405 Ullman Research into Database System Theory This is the first year of a three-year continuing award. High- level algebraic or logical query languages have been shown to be extremely useful in modern database systems, and there is a need to extend their scope. These sorts of languages allow database programs to be written clearly, quickly, and accurately. However, they make it harder for the database system to find an efficient method to answer queries or to implement constraints. Logically expressed constraints are an important feature of distributed database systems, especially when used for collaboration or integration of separate databases. Methods for checking constraints as the connected databases change is especially important; goals are to check for constraint violations as locally and efficiently as possible. Logical languages frequently involve negation in rules, or nonmonotonic reasoning, where providing more information at one level allows one to infer less at another level. Efficient and general ways to find intuitively correct interpretations of logic with negation are being sought. Finally, the use of algebra or logic as a query language requires the optimization of expressions involving the join of many relations. Efficient ways to find good orders of joining are being studied. If successful, large-scale database systems will become easier to use and will be capable of performing operations such as distributed constraint maintenance that they are not able to do with adequate efficiency today. ***